Spacecraft Charging in the Lunar Environment

Spacecraft are critical infrastructure supporting communications, navigation, weather forecasting, national security, and a rapidly growing space economy. When outside Earth's atmosphere, spacecraft can accumulate electrical charge that can damage sensitive electronics and cause sudden, unpredictable failures, thus threatening space missions. This project will advance understanding of when and where dangerous charging conditions will occur in the vicinity of the Moon. Results from the project will provide guidance to spacecraft operators on taking protective action and to engineers on designing more resilient systems. The project team will train early-career researchers in space physics and data-driven methods, strengthening our technical workforce. This work advances our Nation's leadership in space weather and benefits space exploration.

This project will analyze plasma measurements collected by spacecraft to study spacecraft charging in lunar orbit under varying space and solar conditions. The team will curate and process observational data to identify the locations around the moon where spacecraft charging is most likely to occur and the physical mechanisms driving charging. The results will provide qualitative understandings of cause and effect of spacecraft charging and average quantitative trends that will be useful for lunar mission planning.